CAREER: Moduli spaces of maps between algebraic stacks and applications to birational and arithmetic geometry

Algebraic geometry deals with the study of algebraic varieties: higher-dimensional geometric shapes defined by systems of polynomial equations. Solving such systems directly often proves to be intractable. A fundamental theme in algebraic geometry is the interplay between the qualitative geometry of algebraic varieties and the quantitative analysis of solutions to polynomial equations. Central to this is the question of classifying algebraic varieties and understanding how their geometry deforms as one varies the polynomial equations. These questions are answered by a so-called “moduli space,” whose points represent varieties and whose geometry reflects the deformations of systems of polynomial equations. The overarching scientific goal of this project is to develop tools to probe the geometry of moduli spaces by mapping simpler geometric spaces inside them. The research will provide new insights into the classification problem in algebraic geometry, but will also have applications in the related mathematical areas of representation theory and number theory. The project will include educational initiatives at the high school, undergraduate, graduate, and postdoctoral levels, including several conferences and workshops, as well as local outreach and mentoring.

This project will focus on constructing moduli spaces of maps into stacks. Motivated by twisted stable maps of Abramovich and Vistoli, as well as the theory of Kollár--Shepherd-Barron--Alexeev (KSBA) stable pairs of log general type in higher dimensions, the PI will construct a compact moduli space of higher-dimensional twisted stable maps to a target proper Deligne-Mumford stack in characteristic zero. Example target stacks include the classifying stack of a finite group and the Deligne-Mumford moduli space of stable curves. The PI will investigate these—and other examples of target moduli stacks—which will lead to new compactifications of moduli spaces of Galois covers, and of fibrations that serve as higher-dimensional analogues of the classical Hurwitz space. The main tool in the construction of twisted stable maps is a generalization of the theory of KSBA-stable pairs to algebraic stacks, building on the PI's prior work on twisted stable pairs. Along the way, the PI will prove various results about the KSBA-stable families and their deformation theory using the twisted perspective. The PI will also develop an approach to understanding heights of rational points on algebraic stacks via twisted stable maps. This approach focuses on constructing moduli spaces, inspired by those studied above, whose geometry controls the asymptotic counts of rational points on a fixed stack. This will lead to new insights on questions in arithmetic statistics over function fields.